Parallel Algorithms on a Hypercube Multiprocessor

This proposal requests support for the purchase of a hypercube computer for chemical applications, such as algorithm development, molecular quantum mechanics, computational geometry, etc. Seventy-five per cent of the award (165.Ok) will be taken from the CISE/CS&E initiative in FY-87 and 55.Ok (25%) will be paid by Chemistry in FY88.